Investigation of Embedded Sensing Architecture for Damage Detection

PI: Adita Chattopadhyay, Arizona State University

An investigation on embedded sensor architecture is proposed for improved signal processing,
which is directly related to damage detection. A high-fidelity structural analysis procedure will be
developed to integrate the embedded sensing architecture with a composite host structure. The results
from the analysis will be verified experimentally using a Scanning Laser Doppler Vibrometer (SLDV). A
comprehensive investigation into characterization and detection of multi-scale seeded damage is
proposed. To address feasibility, signal processing and instrumentation will be studied. It is expected
that the proposed sensing architecture will reduce the required number of channels for data acquisition
considerably, and in addition, will increase the spatial advantage to cover a large structural area for monitoring.
Statement of Objectives
1. Development of efficient sensing architecture, capable of detecting damage.
2. Analysis of the integrated sensor architecture and composite host structure.
3. Parametric studies to establish detection and quantification of seeded damage in composite structures
using the proposed sensing architecture.
4. Address practical implications regarding the acquisition, collection and processing of the data to
establish the feasibility of using the proposed sensing architecture in the development of a robust
damage detection technique.

Structural integrity is a key issue in both civil and mechanical systems and the proposed research will have significant impact on the advancement of knowledge in structural health monitoring. Currently used damage detection methods are visual or localized methods using acoustic, ultrasonic, magnetic field, X-ray or thermal principles. All these techniques require a priori knowledge on the vicinity of the damage. The development of a robust, quantitative, global damage detection method, applicable to complex structures will have a major impact on engineering systems. The impact of the research will be multifaceted ranging from development of new theory, course development and training new students to collaborative efforts with other related research establishments. Developing a mutually beneficial working relationship with national research organizations will be an integral part of the proposed research effort. Interaction with other research organizations will enhance and expand the infrastructure for related research efforts as well as initiate mutually beneficial collaborative efforts and partnerships. Dissemination of the developed technology will be made via peer reviewed journal articles, seminars, workshops, short courses and technical conferences.

On the educational front, training graduate students in the research area will be an integral part of
the research effort. It is anticipated that a graduate level course, entitled .Structural Health Monitoring,.
will result from this research effort. In addition, interaction with similar facilities at other educational and
research institutions will help develop a network of interrelated teaching and research facilities that will
help in expanding the educational impact of the proposed research. Minority and/or women graduate students will be encouraged to participate in the research effort. ASU has an Office of Minority Engineering Programs (OMEP) and Women in Science and Engineering (WISE) program. They work with the faculty to increase the participation of under represented minority and women in undergraduate and graduate levels in the College of Engineering at ASU. The PI is an active member of the WISE program and has two minority students who will participate in the proposed research effort.